Toward Software Tools for Memory-Efficient Matrix Algebra

A scientific program is a mathematical one so there are two factors
contributing to its performance. One is the time required to perform
arithmetic. The other is the time needed to move data through the
memory hierarchy of the computer. In today's large applications, the
latter cost often dominates. The work funded by this grant focuses on
efficient computational methods for solving the problems in matrix algebra
that arise in a wide variety of science and engineering applications.
Codes for such problems are typically constructed as sequences of calls to
the routines known as the Basic Linear Algebra Subprograms (BLAS). Writing
programs in this way promotes readability and maintainability but can
be costly in terms of memory efficiency especially for matrices of
large order.

The grant will be used primarily to support a Ph.D. student who will
study ways to combine multiple BLAS routines into a single routine that
performs the functions of more than one BLAS. He will examine ways to
create composed BLAS via novel algorithms and performance programming
techniques, developing a general methodology for their creation in the
process. His work will ultimately form the basis for a tool that creates
composed BLAS automatically. Composed routines can significantly reduce
the amount of data read from main memory. Preliminary results include
speedups as large as 90\%.